Enhanced Single Wafer Research Cluster for Advanced Electronic Materials Processing

9872794 Hauser This award is to provide funds to the Engineering Research Center on Advanced Electronic Materials Processing at North Carolina State University to purchase two single wafer processing modules for use in developing next generation integrated circuit fabrication approaches. The requested equipment will enhance the metal on silicon gate stack research cluster at the Center and enable the use of silicon wafers 200 millimeters in diameter, which will provide the capability to transfer the results of the research directly to the semiconductor industry. The two modules are remote plasma processor and an in situ analysis chamber respectively.